Bifurcation Analysis and Computation in Elliptic and Multiphase Problems of Nonlinear Elasticity

T. Healey and P. Rosakis plan to study various problems from solid continuum
mechanics governed by nonlinear partial differential equations. A major
thrust of the proposed work will be on the static morphology and dynamic
evolution of microstructure due to phase transitions in two-dimensional
models of shape-memory alloys. In contrast to well-known absolute,
minimum-energy approaches to the statics problem, we plan to employ modern
techniques of symmetry-breaking, bifurcation theory. The latter enables
systematic determination of metastable states, which we believe our ensuing
dynamical studies will show to be associated with hysteresis. Another
aspect of the work will involve applications of a generalized topological degree
(developed previously by Healey & Simpson) to global bifurcation problems
of nonlinear elasticity - these will be the first such results in
three-dimensional elasticity. The overall goals of the work are to detect
new nonlinear phenomena, obtain constitutive restrictions that are both
physically and mathematically reasonable for general classes of materials,
and to develop new tools/approaches to such nonlinear problems - both
analytical and computational. The proposed approach comprises a blend of
solid continuum mechanics, materials science, nonlinear analysis, symmetry
and group-theoretic methods and computation.

The analysis of models of nonlinear materials at a very general level is fundamental
to the understanding of shape-memory effects in certain advanced engineering
alloys as well as more traditional engineering materials/structures. The
proposed investigation is strongly interdisciplinary, combining models and
techniques from mechanics, materials science and modern mathematics.
Broadly speaking the work will provide new mathematical approaches to
difficult nonlinear problems arising in structural/mechanical engineering
and materials sciences. This has the potentia of leading to a better understanding of
material behavior and design - including the design of "smart" structures.